Developing a National Science Digital Library (NSDL) LibQUAL+ Protocol

Under the auspices of the Association of Research Libraries this project is modifying and repurposing the existing LibQUAL+ protocol for assessing the services provided for the user community of the National Science, Math, Engineering and Technology Education Digital Library (NSDL) program. Project goals include: (a) defining the dimensions of digital library service quality from the perspective of the users; (b) creating a tool for measuring user perceptions and expectations of digital library service quality across NSDL digital library contexts; (c) identifying digital library "best practices" that permit generalizations across operations and development platforms; (d) enhancing student learning by managing effectively user perceptions and expectations of digital library services; (e) establishing a digital library service quality assessment program as an integral part of the library service quality assessment program at the Association of Research Libraries; and (f) institutionalizing continuous product and process evaluation efforts directed toward positive and timely management of outcomes.